Equipment to Improve the Light Microscopy Program in Undergraduate Biology Laboratories.

A sophisticated light microscope is serving multiple functions within a Department which long has emphasized undergraduate training in microscopy. The basic instrument, a Zeiss model 16 phase contrast photomicroscope, is being used to train undergraduates interested in genetics, cytogenetics and microbiology. The addition of fluorescence capability plus a TV camera, monitor and videotape apparatus has transformed the basic microscope into a tool of enormous teaching and student research potential -- the fluorescence capability is supporting modern experiments in neurobiology and cell biology, while the television function is opening up access to detailed studies of the dynamics of living cells. The new laboratory facility is proving to be a superb teaching tool for small groups of students.